International Research Fellow Awards Program: Molecular andGenomic Evolution of Obligately Parthenogenetic Aphids

9600300 Normark The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twentyfour months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Benjamin Normark to work with Dr. Roger L. Blackman at the Natural History Museum in London, England. Dr. Normark and Dr. Blackman will conduct a program of research into the molecular and genomic evolution of obligately parthenogenetica aphids, focusing on the tribe Tramini. This work will build on Dr. Normark's ongoing research into the molecular evolution of the aphid tribe Tramini and on Dr. Blackman's ongoing cytogenetic research into Tramini and other aphids. A central goal will be to synthesize molecular-biological and cytogenetic techniques to progress towards an integrated view of the evolution of aphid genomes in the absence of sexuality. They will focus on the Trama troglodytes complex and on the tribe Tramini of which it is part. ***